Collaborative Research: CyberTraining: Pilot: Operationalizing AI/Machine Learning for Cybersecurity Training

The interplay between AI and cybersecurity introduces new opportunities and challenges in the cybersecurity of AI as well as AI for cybersecurity. However, operations and configurations of AI cyberinfrastructure with a security mindset are rarely covered in the typical curriculum. To fill this gap, this project intends to develop hands-on training materials and provide mentored training for trainees in engineering and science-related disciplines. By transforming and integrating training materials into the curriculum, this project benefits the potential cyberinfrastructure professionals in the community at large. This project has the potential to develop the research workforce in operating AI cyberinfrastructure with a security mindset to meet national and economic priorities.

This project’s goal is broadening adoption of advanced cyberinfrastructure. This project develops a holistic technical approach for cybertraining: to identify, apply, and evaluate AI techniques which are inextricably related to well-defined operational cybersecurity challenges. The project intends to develop a Docker-based training platform that simulates and pre-configures a variety of scenarios to support hands-on AI cyberinfrastructure operations in the context of cybersecurity. Three levels of projects (exploratory, core, and advanced) are designed and integrated into the platform to help researchers and educators customize and develop for different education and training environments. The project broadens the access and adoption of advanced AI cyberinfrastructure while integrating cyberinfrastructure skills with the security mindset to foster inter-disciplinary and inter-institutional research collaborations. In addition to dissemination through publications and social media, the outcomes from this project have the potential to benefit the greater cyberinfrastructure community and beyond.

This project is jointly funded by OAC and the CyberCorps program.